Effect of Surface Waves on Mixed Layer Structure

9402979 Leibovich This study seeks to acquire a better understanding of joint effects of surface waves and turbulence in the upper ocean. The rationale for the research is based on recent experiments which showed that turbulence in the oceanic mixed layer is characterized by an important Langmuir circulation component, which is distinguished by the effect of surface waves. The study will apply large eddy simulation (LES) to the Craik-Leibovich theory of Langmuir circulation and the results will be compared with experimental data. ***